Special Purpose Computer Aided Classroom for Ordinary Differential Equations and Linear Algebra

9450953 Lovelock The University of Arizona is creating a Special Purpose Computer Aided Classroom devoted exclusively to students taking Ordinary Differential Equation and Linear Algebra sequences for sophomores, juniors, and seniors. The emphasis in these courses is now less on methods and more on thinking, understanding, and experimenting. This Special Purpose Classroom contains 32 DOS machines with the IBM Personal Science Laboratory (PSL) available on 8 machines. The PSL is being used to gather and display experimental data in real time. During class time, the computers is being used to enhance thinking, understanding, and problem solving, and encourage supervised experimentation. The design of this classroom is particularly conducive to interactive classes, cooperative learning, and working in groups. This project impact about 1250 students per year. Typically, they are prospective scientists, engineers, teachers of high school mathematics, and mathematicians. One particular benefit is that future teachers are being taught in ways that it is hoped they will later teach.